1992 IEEE Workshop on VLSI Signal Processing - Travel Subsidy - October 28-30, 1992, Napa, CA

This proposal will partially support registration, travel, and hotel/per diem expenses of graduate students and recently graduated young researchers from U.S. universities and industries to attend and participate in the 1992 IEEE Workshop on VLSI Signal Processing to be held October 28-30 in Napa, CA.